Mathematical Sciences: Methods of Non-Smooth Analysis in Optimal Stochastic Control

The objective of this research is to continue the investigation of the non-smooth solutions of the Hamilton-Jacobi Bellman equation and their application to optimal control theory. Recently achieved results have established a new type of relationship between the HJB equation and optimal control theory. The value function is characterized in terms of its directional derivatives as the unique solution to HJB equation. The intuitively and geometrically clear-cut nature of the results promises powerful new first and second order optimality conditions as well as a deeper insight into the structure of the optimal policy. An extension to stochastic problem would offer a novel unified approach to deterministic and stochastic control theory free of any kind of degeneracy or non-degeneracy assumptions. The technical core of the research will be to establish the necessary relations between Lagrange multipliers and directional derivatives of the optimal value function as well as to identify and investigate an appropriate non-smooth second order differential operator.